PFI-AIR: CREST-I/UCRC-Industry Ecosystem to Pipeline Research

This NSF Accelerating Innovation Research (AIR) project will create an innovation ecosystem engaged in the development and technology transfer of breakthroughs in Data Intensive Applications, specifically, geospatial data, health informatics, massive computing, and nanotechnology, into commercially viable solutions.

The public-private partnerships within the AIR ecosystem will establish a network between academia and industry, including researchers, technologists, innovators, experienced industrialists, entrepreneurs, start-up pioneers, and diverse teams of students at all levels. Researchers will have access to resources, experienced entrepreneurial mentors and industry advisors who will help guide them through the process of translating their research and discoveries towards commercialization in new and innovative ways.